State/University Cooperative Research Center for Rock Mechanics

WPCY 2 % B Z R ! X #| x HP LaserJet Series II HPLASEII.PRS x @ , t 0 OpX @Courier 10cpi Courier 10cpi Bold ? x x x , k x 6 X @ 8 ; X @ l ? x x x , x ` w ; X u T a 1R K K) T D \ s L T + | u W J} nI 0 W nI & V;>rIr _ tI r & SU M zLr G O L ^ 3 t 2 W ? Abstract The State/Industry University Cooperative Research Center on Rock Mechanics (RMMC) was established in 1992 with matching funds from the NSF, the State of Oklahoma and a consortium of 14 oil and gas producing companies. The Center's objectives are to apply and integrate advanced geoscience and engineering concepts to issues related to the oil and gas industries. The Center's research program addresses both short and long term goals to solve the geological problems associated with unstable rock formations that cause collapse of boreholes, reservoir compaction and subsidence. The information generated in the Center's research will be used to develop improved drilling technologies in geologically difficult and unstable oil and gas fields. The State of Oklahoma through Oklahoma Center for the Advancement of Science and Technology (OCAST) assists RMMC in developing technical cooperation to solve the problems of small businesses in the State. This award is to support the Center for in the second year of its operation.